U.S.-Japan Seminar: Physics of Highly Confined and Extremely Diluted Condensed Matter Systems: Characterizationand Spectroscopy/Sept 18-22, 1995/Kanagawa, Japan

9417199 Yen This award supports the participation of eleven U.S. scientists in a U.S.-Japan seminar on Highly Confined and Extremely Diluted Condensed Matter Systems, to be held at Kanagawa, Japan from September 18-22, 1995. The co-organizers ape Dr. William Yen of the University of Georgia and Professor Eiichi Hanamura of the University of Tokyo. This seminar is focus on the theory, characterization, spectroscopy of highly confined and extremely diluted condensed matter systems. Topics to be covered include ultrasensitive spectroscopies, single molecule/center spectroscopy, low dimensional systems and nanostructures, and near field microscopies. The seminar will foster the type of contact between Japanese and U.S. scientists that can be expected to have significant influence on the future course of the field. The proposed participants and observers have been selected for their past contributions and current activity in the field and the meeting can be expected to produce concrete plans for future cooperation and exchange. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***